Dynamics of Noisy Nonlinear Mechanical Systems

The overall goal of this investigation is to formulate and develop
methods to analyze the complex interactions between noise, symmetries,
and nonlinearities inherent in rotating and gyroscopic systems,
particularly the dynamics of spinning flexible discs and rotating shafts.

The approach consists of a rational construction of low-dimensional
stochastic models that systematically capture essential features of
noisy mechanical systems. The basis of the proposed work is a
collection of limit theories for stochastic processes which model a
class of engineering problems with dominant Hamiltonian dynamics.
For the reduced model, one seeks standard statistical measures of
response and stability; e.g., mean exit times, Lyapunov exponents and
stationary measures, so that it may be possible to design reliable
engineering systems. The proposed work will be a cross-disciplinary
one, spanning the spectrum from modeling and novel analytical
techniques to experimental verification.

We plan to transfer to industry innovative theory and simulations
developed in the proposed program which will allow improved design
and greater performance of various rotating systems.
An integral part of the final outcome of the proposed work will be
web-based simulators to be used in senior undergraduate and graduate
courses and to provide industrial designers with a predictive tool
to avoid unwanted behavior. This will enhance visual understanding of
the effect of noise on real engineering problems.